Oceanographic Instrumentation, R/V Cape Hatteras

Duke University requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V CAPE HATTTERAS, a 135 foot vessel, which is owned by NSF and operated by the University. The PI requested funding to purchase a computer, replacement Niskin bottles, and a scintillation counter. The instrumentation requested will be used aboard the R/V CAPE HATTERAS in support of 193 days of NSF-funded scientific research in 1993.